ABR: Population Dynamics and Life History of Symbionts

This research focuses on different kinds of organisms that live in intimate association. Parasitism describes the most familiar pattern, in which a smaller organism lives on or inside a larger organism--the smaller parasite causing some harm to the larger host. Parasitism is just one end of a continuum of associations. In many cases, the larger host requires smaller, beneficial partners such as bacteria in order to digest special types of food or to provide essential nutrients.

This theoretical research synthesizes the diverse ways in which organisms live together, identifies unanswered puzzles about how such associations arise and evolve, and proposes models to explain these puzzles in terms of ecological and evolutionary principles. The mathematical and computer models are developed in a way that new laboratory and field studies can be designed to test the ideas and gain further insight into the biology of both parasitic and beneficial associations. This work contributes to understanding why parasites vary in the amount of harm they cause to their hosts. In addition, this research provides a broad conceptual framework for understanding interactions between microbes, such as populations of viruses or bacteria living within a host.